Adaptive Finite Element Methods for Multiscale Problems Governed by Geometric PDE

Nochetto
DMS-0807811

The adequate numerical treatment of continuum phenomena
exhibiting disparate space-time scales is a formidable
mathematical and computational challenge. Modern algorithms
should be able to resolve fine scales for certain physical
quantities without overresolving others, thereby optimizing the
computational effort and making realistic 3d simulations
feasible. Mathematical models in biophysics (such as
biomembranes in both fluid and gel state), in materials science
(such as crystal surface morphologies and bilayer actuators), and
in shape optimization (including both fluid and solid mechanics)
are typical yet quite distinct examples addressed in this
project. Their multiscale structure manifests in rapid
transients and slow motion regimes in time, as well as point and
line singularities (interfaces) and thin layers in space. Large
domain deformations, perhaps leading to topology changes, is
another intriguing feature. The goal of this project is to
design, test, and analyze reliable and efficient adaptive finite
element methods for these multiscale problems, most governed by
geometric partial differential equations, with space-time error
control based on a posteriori error estimation. This project
builds upon, and in fact extends and enhances, the work of the
prior NSF Grant DMS-0505454. It is organized in a number of
small but interrelated topics permeated by the roles of geometry
and adaptivity throughout, from issues in numerical analysis and
computation to applications.

This project blends quite delicate analytical,
computational, and modeling issues in several areas of research
of strategic importance such as nanotechnology, materials and
manufacturing, biotechnology, and high performance computing.
Designing smart electro-mechanical devices as well as
understanding key functions of lipid membranes in living
organisms, both at the nano and microscales, require powerful and
flexible computational algorithms capable of dealing with large
shape variations. This project develops such tools. It is a
collaborative and interdisciplinary project involving a number of
scientists in the US (four of them engineers and physicists) and
abroad, as well as several students and postdocs. Because a
substantial effort is devoted to education and human resource
development, most resources are used to partially support
students and postdocs.